Rapid Climate Change, Clay and Carbonate Accumulation, and Lower North Atlantic Deepwater Behavior during the Dansgaard-Oeschger Interstadial Events on the Bermuda Rise

This project will examine changes in North Atlantic Deep Water (NADW) flow at the highest possible age resolution during the most recent interstadials (Oxygen Isotope Stage 3) in a core from the Bermuda Rise. 230Th will be used to determine sedimentation rate and adjust age control, and Cd/Ca in benthic foraminifera will be used as a tracer for NADW. The goal is to determine whether there were millenial- scale variations in NADW and, if so, whether they correlate in timing and magnitude with variations previously identified in ice cores from Greenland. A positive answer would tend to support the hypothesis that changes in thermohaline flow are linked to high-latitude ice growth.